HACU National Internship Program

9908444

HACU'S National Internship Program is a fully administered and carefully-managed ten week program that places college students in stimulating and challenging professional and educational roles within the federal sector. Utilizing an intensive summer model, HACU and the sponsoring agencies and departments provide academically qualified students with experience-based teaming. Student interns are placed in federal offices and laboratories in the Washington, DC metropolitan area and in field sites throughout the United States and Puerto Rico. Student placements are based upon position descriptions provided by supervisors, who detail the academic preparation, work experience and special skills required to perform the job.

This project is jointly supported and the Office of the Director (including offices such as Office of Legislative and Public Affairs, Office of General Counsel, Office of Integrative Activities and Office of Equal Opportunity Programs) and participating directorates.